The Conditions for Sense-Making in Science Lessons: Studies of Instructional Interactions and Seasonal Change

This project will construct a theory of the instructional conditions that foster sense-making by students learning science. Sense-making in science is the effort to coordinate data or information about some empirical phenomenon with a conceptual or concrete model that explains it. We believe this is a critical aspect of learning science that is missing in most schools. We will study instructional interactions in sixth grade classrooms concerned with the causes of seasonal change. The theoretical model to account for the data, in this case, can be expressed quite concretely--with a model earth and sun. There is preliminary evidence, however, that many students in our classrooms, especially those from non-mainstream cultures, tend to answer "why" questions with evidence rather than with causal mechanisms and thus appear not to have appropriated model-based modes of explanation. For these students, the apprenticeship into scientific discourse through sense-making discussions may be particularly important, yet present a difficult challenge for the teacher. Our research, therefore, will address three specific questions: 1. Under what instructional conditions does sense-making occur? 2. Does the student's discourse style or mode of "science talk" create barriers to their learning science content through observation of sense-making discourse? 3. Under what instructional conditions can students learn the expected discourse style? Our hypothesis is that an interactive process in which students' observations, suggestions, or theories are unpackaged, elaborated or reformulated is necessary in order to develop in students an understanding of the scientific task as an activity coordinating data and theory.